Second Bouchet International Conference; Accra, Ghana; August 14-17, 1990

The Second Edward Bouchet International Conference on Physics and Technology will be held August 14-17, 1990 in Accra, Ghana. The Conference will bring together American scientists (most of whom will be African American), European, and African scientists to discuss recent research findings, and to expose researchers and advanced graduate students to new research results and techniques. The Conference will provide African American and African physicists a continuing opportunity to share research results and to develop collaborations. Support by the National Science Foundation will provide partial support for attendance by members of the U.S. scientific community.